Education News Project Planning Grant

9452907 Heard ABSTRACT The Foundation for Advancements in Science and Education (FASE) is requesting a planning grant to explore the feasibility and potential of establishing a specialized educational news service aimed at both commercial and noncommercial news programs. During this planning phase they will: {SYMBOL 183 \f "Symbol" \s 10 \h} convene an Advisory Board to review and refine the project. This committee will examine such issues as what types of information should be included in such a news service, how stories will be selected and by whom, how accuracy and balance of each story will be determined, and how to assess the effectiveness of the effort in terms of impact on viewers interests, knowledge, and action; {SYMBOL 183 \f "Symbol" \s 10 \h} conduct market research to ascertain the receptiveness of the television news markets to an information product of this type, {SYMBOL 183 \f "Symbol" \s 10 \h} analyze the methods by which stories could be effectively and economically distributed, and {SYMBOL 183 \f "Symbol" \s 10 \h} assuming that feasibility of such a project is established, develop a specific plan for proceeding in a larger and longer-term scope.